Colloidal Forces Involved in Steric Stabilization of Latex

The effect of polymer adsorbtion on model colloid particles will be investigated using total internal reflection microscopy (TIRM) to detect particle dynamic interactions and small-angle light scattering (SALS) to determine the flocculation rate. Comparison between the predictions based on the two measurements will be made, and fundamental aspects concerning interparticle forces will be obtained. TIRM was previously developed by the author. The TIRM measurements in dynamic conditions will be compared to those performed with the atomic force microscope (ATM) in equilibrium conditions. If successful, the research will improve fundamental understanding of the van der Waals and dispersion forces, with immediate application to evaluation of colloidal stability and production of colloidal particles coated with polymeric macromolecules.